Acquisition of 40AR/39AR Instrumentation for New Mexico Geochronology Research Laboratory (NMGRL)

This award provides approximately 20% of the funds required to equip a geochronology laboratory at the New Mexico Institute of Mining and Technology (NMIMT) that will be operated jointly by the New Mexico Bureau of Mines and Mineral Resources and the Department of Geosciences at NMIMT. The Bureau of Mines, the Los Alamos National Laboratory, and NMIMT are committed to providing the remaining funds required. The laboratory facility will apply the argon-40/argon-39 radiometric dating technique to determine the history of volcanic activity during the Quaternary Period (with special emphasis on the southwest US region) and to dating the sequence of volcanic tephra (ash) layers within Antarctic ice cores to interpret global paleoclimatic and paleoenvironmental cycles.